The Role of Experimentation in STEM Education Research Projects

The proposed project will consider the best possible role of randomized field trials in
research projects in STEM education research projects. Two workshops and one
Summative Convocation will direct the attention of scholars to addressing the benefits of
randomization for large- and small-scale STEM education research, impediments to
carrying out research designs that use randomization, and important ways in which
randomization could be adapted to real-world logistical constraints of schools as well as
local needs. The project's intellectual merits arise from the intended value of the
workshops and Convocation for clarifying research designs that best yield actionable
knowledge in STEM education. Broader impacts are foreseeable through clarifying
research processes that are most compatible with the interests of school-age learners.
Through the two workshops and a Summative Convocation, the distinctions, issues, and
debates about randomization in STEM education can be clarified and disseminated to
researchers and to the professional staff of funding agencies.